Analytical Instrumentation: Mass Spectrometer for the Analysis of Carbon and Nitrogen Isotopic Ratios

Bronk 9617753 Mass spectroscopy is a highly sophisticated tool which has contributed greatly to our knowledge of elemental flows and biological rate processes in the ocean. This award will allow the acquisition of a Europa 20/20 isotope ratio mass spectrometer with an ANCAautosampler to analyze 15N and 13C enrichments in samples from aquatic and marine systems. It will be housed in the laboratory of Dr. Deborah Bronk at the University of Georgia's Department of Marine Sciences; she will oversee its maintenance, and supervise and coordinate the processing of samples. This instrument will serve as a valuable resource for other researchers at the University of Georgia, the Marine Institute on Sapelo Island, and the Skidaway Institute of Oceanography. Faculty and researchers at these institutions have research projects in a number of different areas which desperately need or would benefit from access to the mass spectrometer. These projects include studies on the relationship between inorganic and organic nitrogen uptake, contrasting the composition and utilization of dissolved organic nitrogen at two Land Margin Ecosystem Research sites in Chesapeake Bay and two coastal rivers of Georgia, refining estimates of new and regenerated phytoplankton production in the Ross Sea as part of U.S. JGOFS, defining the nitrogen and carbon content of riverine dissolved organic matter and the transport and chemical transformations of this material as it moves to the coastal zone, developing methods to quantify fungal productivity with 13C tracers, determining rates of denitrification and benthic photosynthesis, and defining nitrogen budgets on the Southeastern continental shelf. This instrument will also be used in a semiannual course under development at the University of Georgia on tracer theories and stable isotope techniques. The University of Georgia is providing an equal match to the federal support.